The Nature of Science and the Instructional Role of Scientific Theories

This two-year program is to conduct a summer inservice institutes for 50 secondary biology teachers from Central Kansas and surrounding area to provide them with: l) more adequate conceptions of the nature of science and scientific theories; 2) enhanced science content from the biological and geological perspectives; 3) alternatives for assessing and addressing student misconceptions regarding evolutionary theory; and 4) a rationale for and opportunities to integrate the nature of science, enhanced content, alternative instructional strategies, and the assessment/confrontation of student misconceptions about evolution into their biology curriculum, instructional units and lessons. The institutes are proposed for high school biology teachers primarily from rural/small schools, many of whom often represent a school district as a science department unto themselves. Follow-up sessions will be conducted at each participant's school district during the academic year to assess individual teacher progress and potential individual concerns. In addition, the second-year institute will establish a cadre of experienced "master" teachers capable of promoting opportunities among their students to participate in learning experiences which simulate the processes by which scientists examine the natural world, establish criteria by which to judge scientific from non-scientific beliefs. Finally, the second-year institute will enable these "master" teachers to share/model successful alternative approaches for the teaching of biology for another group of less experienced science (biology) teachers in their home school districts. An amount equivalent to 60.7% of the NSF contribution is provided by Kansas State University as cost-sharing.